Development of an Inverse Monte Carlo Solution for Energy Dispersive X-Ray Fluorescence Analysis

This research comprises Phase II of an SBIR project. In Phase I, primary and secondary fluorescent X-ray intensities were simulated for ternary (Ni-Fe-Cr) systems using an inverse Monte Carlo model in such a way that the weight fractions of the three elements could be determined from the simulation given the X-ray intensities for unknown samples. In Phase II, the research seeks to extend the model to include higher-order fluorescence and source photon scatter within the sample, to perform sensitivity analyses, to develop a means to perform system design optimization, and to benchmark the model against experimental data. the result of this work is expected to be a software package that performs the quantitative analysis of input X-ray spectra for arbitrary source- sample-detector configurations and multi-element homogeneous or heterogeneous samples. If successful, the project could result in a commercial application for sample chemical analysis that could be of significant value.